Design, Analysis & Applications of Algorithms for Solving Systems of Polynomial Equations & Related Problems

This project will explore several basic algorithmic questions in symbolic algebraic computation and investigate their applications to geometric modeling. The overall goal of the project is to design, analyze and test efficient algorithms for solving systems of polynomial equations and related problems, and to test their applicability to geometric modeling problems. The specific problem areas to be studied are: analysis of algorithms for solving system of polynomial equations such as the Wu-Ritt characteristic set algorithm and Lazard's triangular set algorithm; developing variations of these and other algorithms to efficiently handle systems of polynomial equation of special interest; designing efficient new algorithms based on Grobner bases and a new basis conversion algorithm for manipulation of polynomial ideals; investigation of the properties of the general Dixon resultant and algorithms for computing it; and exploration of the use of these techniques in solving algorithmic problems in geometric modeling. The design and analysis of the various algorithms will be accompanied by experimentation with trial implementations on existing computer algebra systems. The aim of the experimentation will be to incorporate possible improvements suggested by the analysis and to uncover phenomena that might possibly be missed out in the analysis. Fine tuned implementations of a few special purpose algorithms are also planned.